In Search of Green Thunderstorms

Bohren/Abstract The objective of this research is an optical examination of green thunderstorms using a spectral photometer to evalute two competing theories about the transmission, absorption and scatting of (visible) light in and near thunderstorms. The observations will ne made in Oklahoma during a meteorologicalfield experiment (VORTEX) designed to investigate tornados.